CAREER: Computational RFID for Securing Zero-Power Pervasive Devices

This research advances the knowledge and capability for securely
performing general-purpose computation and communication on zero-power
devices that rely on harvested energy stored in extremely small
reservoirs such as capacitors. A type of zero-power device,
computational RFIDs (CRFIDs) harvest RF energy and endure continual
interruptions to power. Complete loss of RAM on the order of every
second makes the notion of a computational checkpoint fundamental to
this model of computing. A significant problem is how to perform
effective computation and checkpoints in a secure and
privacy-preserving manner. The most fundamental question is: how to
securely make forward progress of computation on zero-power devices?
The exploration of checkpointing strategies that exploit the
energy-centric properties of computational RFIDs will lay a solid
foundation for designing secure software and systems for pervasive
devices. Beyond security and privacy, the research seeks to discover
what kinds of computational problems can be solved in a practical
sense on extremely resource-constrained devices. While the
experiments focus on computational RFIDs, many of the techniques will
apply broadly to devices with batteries as well.

The impact of this work will lead to improved security for computation
in low-power, untrusted infrastructure. The expected results will be
published in venues at the intersection of security & privacy and
low-power computation. Potential applications include improved
security and privacy for (1) implantable medical devices and (2)
sensors embedded in concrete components of bridges and roads.